Research in Low Energy Nuclear Physics

The Stony Brook Superconducting Linear Accelerator provides heavy ion beams
for basic research in nuclear and atomic physics, and an infrastructure for
the recruitment, development and training of students in the areas of
radiation detection, hardware development and experimental analysis. The
planned research with the accelerator and at other facilities will build
upon the activities currently in progress, and will continue the educational
program of current and new PhD and other students. The research program in
gamma ray spectroscopy will investigate several areas of nuclear structure
including two projects that were started at Stony Brook and are now very
active areas of research. The first studies the fingerprints of chirality,
which involves the existence of right-handed and left-handed geometries in
certain special nuclei, and the second project studies the limit of how much
angular momentum a nucleus can carry. Another research project uses the
unique capability of our LINAC to provide intense Fr beams of 107
particles/sec. The effort will focus on polarizing, cooling and trapping of
Fr for precision measurements of the nuclear magnetic moments that are
needed to test the atomic calculations of the Fr atom. The Fr beams will
also be used to continue the development of weak interaction measurements in
atoms. The Stony Brook Nuclear Structure Laboratory also serves as a focus
of many educational activities. Students at the high school, undergraduate,
graduate, and postdoctoral levels participate in the research program with
various intensities, from beam line construction to running actual
experiments. In addition to these students, high school students, incoming
students, and various classes tour the laboratory as an example of an
accelerator research facility.